Redesigning Trypsin via Mutagenesis

To provide insight into the substrate specificity, catalytic mechanism and structure of trypsin, current methods of molecular genetics, biochemistry and biophysics will be used to generate and analyze mutant trypsins. Three general approaches are used to alter the enzyme: 1) targeted substitutions, 2) region specific substitutions and 3) natural adaptation analysis. In each case site-directed mutants of trypsin are generated according to structural and/or functional principles. The novel trypsins are then over-expressed in bacteria. The variant proteins of interest are isolated, purified and their parameters compared with the native enzyme. Selected mutants are then chosen for more detailed kinetic, molecular dynamic and coordinated three-dimensional structure analysis. Results from the initial modifications will provide a basis for introducing future amino aid changes into the enzyme. Initial experiments have been successful in addressing the role of specific amino acids in substrate recognition and the catalytic mechanism of the enzyme. Proposed experiments involve amino acid replacements of active site residues for studies of the catalytic mechanism, substrate binding pocket residues and surface loop residues. These studies will contribute to our understanding of structure/function relationships in the enzyme trypsin and related serine proteases. In addition, these studies will help provide a framework for the de novo design of enzymes.